High Resolution Spectroscopy Facility

Lasers afford the chemist with a delicate probe for such diverse studies as obtaining extremely hih-resolution spectra of molecular beams, studying the dynamics of molecular motions in electronically excited states and studying how DNA's respond to ultraviolet light. The Department of Chemistry of the University of Washington will use this award, joint-funded by the Chemistry Shared Instrumentation Program and the Instrumentation and Instrumentation Development Program, to help acquire laser instrumentation for a high-resolution spectroscopy facility. The areas of research that will be enhanced by the acquisition include: 1) Structures and decay dynamics of van der Waals clusters 2) Vibrations and band-shapes of H-bonded clusters of different size 3) Photodissociation pathways of small clusters 4) State-selected scattering studies 5) Spectroscopy of non-stationary states of molecules on bound and unbound potential surfaces 6) Dynamic light scattering of supercoiled DNAs using ultraviolet light.